A Novel Manufacturing Process for Lightweight Alloy Composites

The increasing need for high-temperature lightweight aluminum alloy composites in the automobile and aerospace industries requires satisfactory performance for cost-effective production of the composite parts. A new method for the production of lightweight alloy composites through in-situ formation of equilibrium reinforcement phases, without any metastable phase formation is proposed in this project. The principal objectives of this research project include: (1) processing of equilibrium silicon carbide, silicon nitride and metal silicide reinforced aluminum alloy composites without any intermediate metastable phase formations; (2) optimization of materials variables such as precursor, compositions and the process variables such as time , temperature, composition of melts, and the stirring conditions; (3) modeling of thermodynamic properties of the composite melts; and, (4) determination of reaction rates and mechanism of the composites formation. High temperature oxidation and sulfidation of the composites will be investigated. The experiments will be performed in an alumina crucible placed in the constant temperature zone of resistance heating furnace. This work is expected to generate a newer understanding of the kinetics and thermodynamics of stable phase formation and control in composites interface reactions. The results of these studies are expected to ultimately lead to the development of an innovative cost-effective method of producing composites for commerce.